NIMD: Probing the Nanoworld -- Instructional Materials Development

This project would develop instructional materials for integrating nanoscale science and engineering content into the secondary STEM curriculum. The proposed modules will present nanoscience activities, experiments and assessments in an interdisciplinary context that relates to traditional standards-based topics of force, properties of matter, scale and instrumentation. The modules are intended as replacement units rather than additions to existing curricula and will be accompanied by teacher's guides and a professional development protocol. Expertise in materials development and curriculum project coordination will be provided by the Mid-continent Research for Education and Learning (McREL) Co-PIs Ristvey and Morrow. Collaboration with Prof. Yoshio Nishi, Director of the Stanford Nanofabrication Facility (SNF) and his colleagues will provide content expertise to the development team.